Undergraduate Neurobiology Laboratory

This project aims to give the students a well-grounded education in the rapidly-changing field of neurobiology. By carrying out laboratory exercises that illustrate techniques involved in measurement of electrical potentials from excitable cells the ideas learned in lecture can be reinforced and developed further. Hands- on experience makes understanding of the difficult biophysical concepts and principles underlying neural function more accessible. Each of the 6 set-ups that are being purchased consists of a MacIntosh SE computer with ancillary MacLab hardware (allowing the computer to be used as an oscilloscope or chart recorder), a voltage follower, preamplifier, two micromanipulators, and a stereomicroscope on a boom stand. In addition, highly interactive saftware reproducing intracellular recordings of voltage and current are used to challenge students' understanding of action potentials. The project expands and strengthens the curriculum, and prepares the students for further study of neurobiology. The college will contribute an amount equal to the award.